Undergraduate Research: Cross-Lingual Approaches to Morphosyntactic Tagging

The main goal of this project is to build a team of
undergraduate students in Linguistics and Computer Science to
work on the research project collaboratively. Through this
experience, the students will be able to learn about each
other's disciplines, linguistic properties of many interesting
languages, tagset design, various supervised/unsupervised
approaches to morphosyntactic tagging as well as acquire
mathematical modeling and algorithmic skills -- all while
working as part of the research team.

In this research, the PI together with her students will
explore how cross-lingual correspondences can be used for
scientific and technological benefit, and provide a better
understanding of what linguistic properties are crucial for
morphosyntactic transfer.

This award will play a central role in expanding inquiry-based
learning, fostering student collaborations, and providing
valuable hands-on experience of highly practical work on
difficult, morphologically rich under-represented languages.
The impact of this project is expected to translate into
significant gains in recruitment of minority students through
research training in Computer Science and Linguistics. The
undergraduates who work on this project will collaborate on the
writing of research publications and present at national
meetings so that they can contribute to the research culture
while enhancing their research awareness.